COLLABORATIVE RESEARCH: High-Resolution Event Stratigraphy of the Kope-Corryville Interval in the Type Cincinnatian

The current nomenclatural framework for the type Cincinnatian suggests an underlying lithostratigraphic complexity that inhibits utilization of its rich fossil biota for paleoecological and macroevolutionary investigations. However, several recent studies indicate that this apparent complexity is partly an artifact of difficulties with the nomenclature itself. The purpose of the research is to develop a high-resolution chronostratigraphic framework for the Kope through Corryville Formations (Edenian- Maysvillian) in the Cincinnati region that transcends stratigraphic nomenclature through the use of event horizons for correlation, including: transgressive surfaces, epiboles, earthquake-disrupted beds, storm beds with unusual sedimentological features, and sea level-associated stratigraphic "spikes" in lithologic and faunal characteristics. A series of field localities and cores from throughout the region will be measured and described in detail, and faunal samples collected and analyzed, to delineate event horizons within the study interval. Previous investigations indicate the presence of several such horizons, and it is anticipated that our work designed specifically for this purpose, will permit the recognition of several more. The result will be a series of cross- sections and maps illustrating a chronostratigraphic framework for the sequence. As a first use of this framework, we will conduct a series of gradient analyses on documented event horizons to calibrate the degree of lateral variability in paleoenvironments and paleocommunities at specific times during the Edenian and Maysvillian stages.